NMR Spectroscopy: Course Revision, Interfacing and Dissemination for Undergraduate Instruction

In this project, Nuclear Magnetic Resonance Spectroscopy is being used by biology, biochemistry, and chemistry majors at Iona College as a qualitative and quantitative tool, and as a probe for making fundamental physical and chemical measurements to enhance understanding of the theoretical and practical applications of this method to undergraduate instruction. As an exercise in practical electronics, students interface a personal computer with the NMR spectrometer using general purpose, commercially available hardware and software.